Mathematical Sciences: Workshop on Cross Disciplinary Research in Multiphase Flow

The Society for Industrial and Applied Mathematics (SIAM) will administer a workshop on cross disciplinary research in multiphase flow on June 2-4, 1986, in Leesburg, Virginia. The workshop will present recent advances, formulate important problems, and stimulate research in multiphase flow. Participants in the workshop will be primarily applied and computational mathematicians and chemical engineers of academe, government, and industry who are interested in and are working on various problems of multiphase flow. Topics being considered include: granular flow modeling and applications, bulk properties of bubbly liquids, rheological properties of fluid-particle systems, suspensions, colloidal systems, phase separation, and other instabilities, many body problems in hydrodynamics, the use of vortex methods in multiphase flow, mathematical problems in the rheology of complex fluids, diffusion limited aggregation, and modeling of blood flow and clotting.